Compiler Infrastructure: Development of a HIL/LIL Framework for a National Compiler Infrastructure

Compiler infrastructure is a key and enabling component of cutting-edge computing systems research. Whether the research is focusing on developing new optimization algorithms, designing a new programming language, creating new software tools, developing and analyzing real-time systems, or exploring new or experimental architectural features, a complete, robust, and flexible compilation system is required to perform realistic experiments in a timely fashion. This research project will develop a compiler infrastructure, called Zephyr, to meet the current and future needs of computing system researchers. The leitmotiv of Zephyr's organization is the separation of the representation or form of Zephyr's intermediate languages from their content. Decoupling the content of an intermediate language from its representation permits researchers to use an intermediate language most appropriate for their needs, to extend an existing intermediate language, or to develop a new HIL, yet still use Zephyr infrastructure and leverage off the efforts of other research groups also using the infrastructure.